Thermal Evolution of the Central Himalayan Orogen in Nepal

Detailed structural and petrologic studies are proposed in several transects across the Nepalese Himalayas to further under- stand the Eocene collision between India and Asia. Specifically, thermobarometry and Ar-Ar and U-Pb geochronology will be used to constrain the P-T-time paths for these rocks. Analyses of heat- producing elements will be carried out on selected samples to evaluate the thermal evolution of these rocks and to evaluate partial melting of the underthrust Indian plate (to determine origin of the associated granites). Structural work will assess basement-involved thrusting. The goal is to improve knowledge of the relative importance of various tectonic processes in the thermal evolution of collisional orogenic belts. Collaborative arrangements have been made with Nepalese (Dr. Upreti), French (Dr. LeFort), and others (e.g. Drs. Parrish, Harrison) from N. America.